Atmospheric Oxidation: Field and Laboratory Studies of OH, HO2, RO2, OH Reactivity, and Measurement of Ozone Production Sensitivity

The detailed understanding of the reactivity of the hydroxyl radical (OH) radical, the primary atmospheric ''detergent'' or scavenger species produced photolytically in the atmosphere, remains a challenging problem in atmospheric chemistry. This study builds on successful investigations and themes of an earlier award and will enable Penn State investigators to:
i) participate in a planned multi-investigator studies (Blodgett Forest, CA) of the effects of biogenic emissions on OH and HOX chemistry,
ii) engage in further laboratory studies directed to understanding an unexpected night time (OH) reactivity,
iii) continue their verification and validation of a sensitive laser induced fluorescence (LIF) detection method compared to other techniques for determining the concentration of OH in air.
The continuation of these activities will further our understanding of atmospheric oxidation processes in general, including ozone production and the factors controlling the fate of many tropospheric air pollutants.